East Tennessee Consortium Professional Development Seminar for College Teachers of Mathematics

This regional consortium of two- and four-year colleges will conduct a week-long professional development seminar for college mathematics teachers in the East Tennessee area during the summer of 1992 followed by three week-end seminars in the 1992-93 academic year. The seminars are laboratory-based and are designed to introduce participants to discrete dynamical analysis, provide them with extensive opportunities on the use of calculators and computers for exploration and problem solving, and lead them to a continued interest in collaborative research and professional development. In addition, these seminars will provide opportunity and stimulation for cooperative development of new curricular materials and instructional techniques for the use of calculators and computers in the teaching of mathematics in post-secondary classes from the beginning levels through calculus.